Research Experiences for Undergraduates in Chemistry at Tufts University

This Research Experiences for Undergraduates (REU) Site project is in the field of chemistry. For a one-year period beginning April 1992, ten (10) undergraduate students will spend ten (10) weeks engaged in basic research under the direction of the faculty members in the Chemistry Department. The goal is to provide ten talented undergraduate students, four from Tufts and six from other colleges, with the opportunity to participate in chemical research. The Tufts program will focus on those students who have maintained their interest in science through the sophomore year, both declared majors, as well as students who are non-majors or undecided as to their specific area of science concentration.